ROW: Forgetting and Relearning of Event Memories

ABSTRACT This proposal is concerned with the accuracy of children's memory of autobiographical events. Current research on memory suggests that repeated questioning about a past event can enhance the consistency with which one recalls the event. The PI intends to test various explanations of this finding with children, to determine the factors that influence the accuracy (or inaccuracy) of children's autobiographical memory. The research has important implications not only for theories of memory, but for more practical concerns, as well. For example, it may shed light on issues of the reliability of children's courtroom testimony under repeated questioning, etc. This research has the potential to expand our understanding of the factors that affect our memories of important life events.